Asilomar II Conference: Effects of Chemical Change on Magnetization of Minerals, Rocks and Sediments

This award supports a workshop on chemical effects on magnetization. Current high-profile rock magnetic research in a variety of areas in the Earth Sciences requires an in-depth understanding of the effects of chemical change on the magnetization of inorganic and biogenic (or biologically mediated) magnetic minerals. "Chemical change" we means a variety of processes: low- and high-temperature alteration, diagenesis, and authigenesis. The compounds of interest include hydroxides, oxides, and sulfides of iron. Similarly, "magnetization" refers both to room temperature properties (controlled by crystal structure, chemical composition, and grainsize) and to the natural remanent magnetization produced by chemical and chemico-viscous processes. In order to have the strongest impact on research in this interdisciplinary area, invites include (1) basic rock magnetists, (2) applied rock magnetists (working in the areas of magnetic anomalies, climate change, biomagnetism, sedimentary magnetic records, etc.) and (3) the non-rock-magnetic specialists such as isotope geochemists, biomagnetists, and soil chemists.